U.S.-Germany Cooperative Research: Synthesis of Sulfur-Rich Compunds

The proposal is for a collaboration between two active research groups with complementary skills. The PI's group specializes in transition and main group reagent synthesis; the foreign group in the synthesis of main group heterocycles. The work focuses on extending a methodology that uses titanocene compounds as reagents to one that uses zinc reagents with the goal of preparing new sulfur-rich compounds. There is a natural synergism between the U.S. and German groups, and the graduate students involved in the work will be able to broaden there scientific and cultural perspective through their work in the foreign laboratory. │┐%¥` />┤ %?>ÀÁ╝ ¥Á╝_ Á┬│©/>ÀÁ¢ ?Â ¢¥┐┤Á>¥¢ ┴©? ┴╣%% %Á/╝> >Á┴ _Á¥©?┤¢ ?Â │©/╝/│¥Á╝╣:╣>À ¥©Á ║?%`_Á╝¢ ¥©Á` ¢`>¥©Á¢╣:Á (?¢¥ ?Â ¥©Á _Á¥©?┤¢ ┤Á└Á%?║Á┤ ▓` ¥©Á ªÁ╝_/>¢ ¥? ¢¥┐┤` %╣╗┐╣┤ │╝`¢¥/% ║?%`_Á╝¢ ┴╣%% /¢ / ╝Á¢┐%¥ ?Â ¥©Á Á┬│©/>ÀÁ¢ ▓Á ▓╝?┐À©¥ ╣> ©?┐¢Á ¥? ó?╝>Á%%